Software Implemented Fault Tolerance in Multicomputers

The main objective of this proposal is to develop an integrated approach for increasing the dependability of parallel computers. For detection and diagnosis of hardware faults at the local (node) level, this approach will combine off-line built-in self testing, on-line concurrent checking, and software techniques implementing path and algorithmic-based checks. The aim of this proposal is to develop a systematic method for generating and placing checks into the implementation of an application. For automating the verification process and placement of checks in programs, an interactive tool, VERIFY, will be developed. For estimating the coverage factor provided by these techniques, a software fault-injection tool will be created. Efficient and fast reconfiguration algorithms will be developed for avoiding single and multiple faulty nodes and links. A user transparent software layer will be created for implementing the proposed algorithms. This will be written on top of the existing system software that residents in every node of parallel computing systems. The Software Object-Oriented Fault-Injection Tool (SOFIT) will be ported on the nCUBE and Tandem SeverNet. The recovery time overhead will be estimated in the presence of single and multiple faults injected by SOFIT into the nodes and links of the nCUBE and SeverNet when programs are being executed. A dependability evaluation study will be performed. The objective of this research is to show that this integrated approach can be used successfully for improving the reliability of the nCUBE and SeverNet by an order of magnitude.